Kinetic and Mechanistic Studies of Highly Reactive Species Containing Electron-Deficient Main Group Atoms, and the Synthesis of Novel Molecules

With funding from the Organic Dynamics Program of the Chemistry Division, Professor Peter P. Gaspar of Washington University (St. Louis) will study highly reactive species containing electron-deficient main group atoms. This is a renewal of Award CHE-9108130. Recent past work led to discovery of ways to make the novel electron deficient carbene analogs, phosphinidenes (RP), representing formally monovalent phosphorus, and Gaspar's group has been involved in silylene chemistry for many years. This project will involve attempts to generate highly reactive species with electron deficiency on diverse atoms: silylenes, germylenes, stannylenes, borylenes, and aluminylidenes. The project will extend the mechanistic ideas of organic chemistry to the prediction and rationalization of bond-making and bond-breaking processes across the periodic table. Other new species such as germenes and phosphinidene chalcogenides will provide mechanistic insight and, potentially, synthetic utility. Organic chemistry has a rich history of detailed study of highly reactive species, which are intermediates in many chemical reactions, and of using such studies to predict new and useful chemistry. This project will examine a series of related highly energetic and reactive species involving atoms not traditionally considered part of the organic chemist's repertoire. It will use the rationales of organic chemistry to extend our understanding of details of chemical behavior into many other regions of the periodic table.